Spectroscopic Probes for Structural and Substitution Isomersin Alkali Cluster Beams

This research, part of the Experimental Physical Chemistry Program, utilizes spectroscopic techniques to probe for structural and substitution isomers in alkali cluster beams. The data obtained in these studies will further advance the field of gas-phase clusters where, so far, information on multiple sructural isomers among aggregates of one particular size is lacking. Near-infrared two photon ionization and ion depletion probes will be used to characterize excited states of microclusters, with the aim of identifying candidate species for isomer differentiation. The differentiation studies will make use of isomer specific optical bleaching followed by size specific detection of the resulting modified absorption.